Exact Controllability and Observation of Structural Acoustics and Thermoelastic Systems

0208121
Avalos

This project is concerned with studying exact boundary controllability
properties of those systems of coupled partial differential equations
(PDE's) which govern structural acoustic flow within a chamber. Exact
and null boundary controllability problems for two-dimensional systems
of thermoelasticity will also be studied. In part, the work will entail a
study of the dual problem; namely, the attainment of related observability
inequalities for solutions of homogeneous adjoint equations. In line with
the intended engineering applications, the focus will be on situations
which allow control of the structural acoustic dynamics on as small a
(boundary) control region as possible. Moreover, this project is aimed at
finding conditions on the geometry and prescribed controls so that, with
control implemented on the flexible portion of the acoustic chamber only,
one will have exact controllability of the acoustic flow, for arbitrary initial
data of finite energy. It is anticipated that key ingredients in the work will
include the following: (i) sharp trace regularity for the wave equation in
the absence of the so-called Lopatinski condition (intrinsic to the wave
equation under Neumann boundary conditions); (ii) microlocal analytical
estimates which will allow the absorption of tangential wave traces by
time derivatives on the boundary; and (iii) recent results involving
Carleman's estimates for the wave equation with controlled Neumann part
of the boundary. In addition, the project will focus on problems of linear
and (globally) nonlinear exact controllability for thermoelastic systems. In
particular, thermoelastic PDE's will be considered which have their
associated (non-Lipschitz) nonlinearities in place; e.g., the von Karman
bracket and the quasilinearities which appear in the modeling of extensible
plates. This work will attempt to use, in an essential way, the now-known
analyticity of linearized thermoelastic models and our recent stability
work for uncontrolled (but fully nonlinear) thermoelastic systems.

Examples of coupled partial differential equations (PDE's), such as those
to be investigated, have long existed in the literature. However, recent
innovations in smart material technology, and the potential applications of
these innovations within the context of control engineering design, have
greatly increased the interest in these PDE models. The project is aimed at
obtaining information about certain qualitative properties of these
equations, which in turn can be used to design effective control laws for
the structures/interactions that these equations govern. For example,
structural acoustic PDE's are used to model the interaction of an aircraft
cabin's interior acoustic field with the surrounding walls of the cabin. For
the benefit of the passengers, it is desirable to negate or control pressure
disturbances that act directly on the interior acoustic field. These
disturbances typically emanate from outside the cabin environment; e.g.,
vibrations due to aircraft engine and propeller noise, or effects due to
weather turbulence. In practice, engineers attempt to control this external
noise by placing piezoelectric actuators/sensors on a portion of the cabin
wall, these devices to act in such a way so as to remove, or at least lessen,
the harmful acoustic pressure effects. However, the efficacy of this
technology is profoundly sensitive to the shape of the cabin, as well as to
the particular region of the cabin walls where the actuators are placed. The
goals of this project include: (i) the precise mathematical characterization
of those cabin geometries for which active control design by piezoelectric
actuation is indeed possible; and (ii) when such control design is
practicable, the construction of a reliable method to prescribe the amount
and region of control actuation which will be necessary to maintain a calm
acoustic field within the cabin.